GOALI: Nanoparticle Metrics for Computational Materials Mechanics

Nanoparticle Metrics for Computation Materials Mechanics

ABSTRACT

This GOALI program has the scientific goal of directly evaluating measured and computational submicron length scales. Additionally, it has the engineering goal of applying this to improved materials processes for protecting and manufacturing magnetic recording systems.
Scientifically, we are measuring the mechanical response of defect-free nanospheres in the 20 to 200 nm range utilizing nanoindentation, atomic force microscopy, and transmission electron microscopy. Direct evaluation of the identical number of atoms with the identical boundary conditions are being evaluated using modified embedded atom interatomic potentials at the smallest scales coupled with discretized dislocation dynamics at the larger scale. Parameters to evaluate length scales associated with gradient plasticity, volume to surface ratios, and excess surface stress included dislocation imaging, strain hardening measures, and surface modification. Regarding the engineering goals, improved materials processes for planarization of thin films utilizing nanospheres surface-modified by atomic layer deposition (ALD) will be sought. This same ALD process, as currently being investigated for nanometer level protection of heads for magnetic recording will be applied to head media with algorithms for improved performance against localized friction and wear as a goal.

Principal Investigator
W.W. Gerberich, University of Minnesota

Co-Principal Investigators
C.B. Carter, University of Minnesota
W.A. Curtin and A. Needleman
Brown University, Provi